Combinatorics and Analysis of Special Functions

DMS-0300126
Bowman, Douglas

Abstract:

Title: Combinatorics and Analysis of Special Functions

This proposed project uses two classes of broad mathematical techniques,
combinatorics and analysis, to expand knowledge of special functions in
two ways. First it introduces new classes of special functions and
catalogue their properties. Second, it studies new properties of
known special functions. In particular, this project comprises ten
subprojects. These include discovering and classifying algebraic
relationships between special values of multidimensional polylogarithms,
studying the combinatorics of shuffles and their q-analogues, analyzing
the almost everywhere behavior of the Rogers-Ramanujan continued
fraction on the unit circle, and studying continued fractions with multiple
limit values.

Special functions are those mathematical functions which have recurred
often enough that they have been distinguished with their own name and
have had their properties catalogued. Indeed, the famous mathematician
Paul Turan once said that special functions would be better named
"useful functions". The most famous examples are perhaps the trigonometric
functions, which are of critical use in all areas of technology. As time
progresses and physical, technological, and mathematical knowledge grow,
the set of functions dignified with the term "special" also gets larger.
Additionally, new properties of functions already in the pantheon of
special functions are discovered and these properties are added to the
banks of human knowledge. This project investigates certain natural new
special functions as well as explores novel properties of known special
functions.